Presidential Young Investigators Award: Particulates and Soot in Flames

A project has been developed which is concerned with the dispersion of particles in a turbulent shear flow. Single particles of variable size shall be injected onto the center-line of a turbulent jet; laser light scattering will be used to measure the position of the particle across a plane of the jet. It is intended that Lagrangian statistics of particle dispersion be obtained as a function of the relative time scales for particle motion and for turbulence. A second project is being developed to study the effect of mixing rates on turbulent diffusion flames which are confined in a duct. In particular, the formation of soot and its radiation are of interest in confined diffusion flames. As the axial pressure gradient is increased, mixing rates are enhanced and the formation of soot particles may be suppressed. Measurements of soot volume fraction and velocities will be made in these flows. A third area of interest is in particle formation in mixing flows. This work is related to condensation in mixing layers, aerosol nucleation kinetics and possibly material synthesis in flames. A numerical study is being performed on the effect of mixing on a condensational aerosol in a mixing layer. An experiment is planned in which laminar flows containing trace amounts of ammonia and hydrogen chloride form particles via a relatively slow reaction.